Effectiveness and Efficiency of Fault Removal Techniques

Because lack of control and replication impede many software engineering studies, there is a need to design experiments that take advantage of completed projects (and the associated data), rather than "live" projects (where the goal of getting the product out the door may compete with data capture and analysis goals). The research project involves conceiving, designing and preparing a collection of large-scale, multi-location retrospective experiments. The research focuses on four fault identification techniques (requirements inspection, formal specification, formal design, and fault injection), building upon existing work by determining which methods are more effective and in what contexts. In particular, the project seeks evidence about which method is most effective and/or efficient at fault identification and removal. The research involves a consortium of industrial and academic partners, all affiliated with Howard University's Center for Research in Evaluating Software Technology. Where possible, parts of the experimental design will be tested by running parts of the experiment with student projects to confirm its feasibility and to help direct the preparatory efforts. The results should have wide impact, both on the community of practitioners (who will find the results useful for guiding resource allocation decisions) and researchers (who will note the feasibility of doing software engineering field experiments with retrospective data).